Theory of Atomic, Molecular, and Optical Processes

Nonperturbative methods will be developed for investigation of the structure and dynamics (both classical and quantum) of extended (Rydberg) atoms in static and time-dependent external fields. One approach will be to study Rydberg hydrogen atoms in polarized fields. A second approach will involve developing a new time-dependent density functional theory and applying it to the structure and dynamics of complex Rydberg atoms in external fields.